Expanding Innovation Opportunities in Tennessee

0091632
Johnson

This award is to Tennessee Technological University to support the activity described below for 36 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners include Tennessee Technological University; Austin Pea University; East Tennessee State University; University of Memphis; Middle Tennessee State University; Oak Ridge National Laboratory; Tennessee Biotechnology Association; Cumberland Emerging Technologies; TenneSeed; Tennessee Board of Regents.

Proposed Activities
The activities for this award include screening new ideas for suitability for commercialization; new courses in entrepreneurial training; spin-off companies for students; development of an electronic communication system to track developments and offer assistance to small spin-off companies; connecting the research, knowledge, discovery of the universities to the generation of new patents, and licenses, stimulate new economic growth and economic well being in the state.

Proposed Innovation
The innovation goals for this award include creation of intellectual property by the universities in the state, transfer of new knowledge to the private sector, creation of new economic enterprise, raising the economic well being of the entire state (most of the economic wealth is in the eastern part of the state). This activity will also provide the necessary workforce training to support the new business and industry.

Potential Economic Impact
The economic outcome will be the general economic well being of the region.

Potential Societal Impact
The societal benefits include increased economic well being for the region and participation of under-represented groups in the enterprise.